CAREER: Developing Secure Systems for Network Appliances

The current information revolution is stimulating the emergence of new computing devices, here called network appliances, that connect to the information infrastructure, interact with the real world, and can be programmed to perform custom functions. The limited resources available on most appliances will create a need for in-network servers supplying CPU cycles and storage. These servers will host proxy services as well as application specific gateways. This project will research the design and implementation of computer systems for network appliances and the related in- network servers. This includes developments at the level of the operating system, programming languages, and the run- time system. More concretely, the research will develop around the Secure Language Kernel (SLK) operating system being developed. SLK relies on the type safety properties of the language system in order to enforce protection boundaries between applications and the OS itself, which means that all code can run in a single address space, and at a single hardware privilege level. The expected benefits of this approach are higher resource efficiency, seamless system extensibility, and flexibility in the form of fine grain sharing across protection domains.***